Particle Physics Research at the CMS Experiment

This work by the University of Illinois Chicago particle physics group is focused on improving our understanding of the Universe at the smallest scales, allowing us to probe nature’s basic symmetries and their relation to our fundamental understanding of mass. By precisely measuring the properties of the newly discovered Higgs boson with the CMS detector at the LHC, key insights will emerge into how electroweak symmetry is broken and the fundamental property of mass. Other topics that this research will explore include searches for manifestations of supersymmetry and exotic new phenomena beyond the Standard Model involving strong dynamics. Enabling tools and methods for this research include their work on hardware and software development for CMS. The group also has an established Quarknet outreach activity in Chicago-area high schools.